1993 Workshop on Rapid Prototyping of Integrated Circuits for Universities, October 18-19,1993, Washington, DC

This award provides funding for a workshop to convene experts and scientists to assess the unique needs educators have for the rapid prototyping of integrated circuits and to suggest potential solutions for continuously improving the state-of-the-art in U.S. universities. User data indicates that in some cases resources are not being used in the most effective manner. This workshop focuses on the prototyping facilities offered by MOSIS and how these facilities can be most effectively utilized by the education community. The workshop discusses and makes recommendations in the areas of: new technologies; design methodologies; testing; and policies, procedures, and information dissemination. Invited participants from universities, government agencies, and industry seek to determine how universities can improve their capabilities in the rapid prototyping of integrated circuits. A report will be produced and distributed to microelectronics educators as well as selected government and industry leaders.